Development of a Sensor To Record Structural Displacements

This project will investigate the horizontal and vertical displacements of large structural systems due to extreme winds, earthquakes, and impacts. Fiber optics and laser technology will be investigated.